AF: Medium: New Directions in Coding Theory and Pseudorandomness

The probabilistic method is a powerful tool to establish the existence
of diverse objects of importance in several applications. For example,
Shannon's famous theorem asserts that a random codebook can be used
for reliably transmitting information at optimal rates on a noisy
channel. It is well known that a random graph is typically "Ramsey"
and has no large clique or independent set, and a random sparse graph
is very likely to be an expander with excellent connectivity. Yet, in
applications it is important to explicitly construct such an object
with a certified guarantee of the desired property. Obtaining such
constructions of comparable strength to what is guaranteed by the
probabilistic method is typically much harder and often unknown.

Pseudorandomness is a broad area that deals with efficiently
generating objects that exhibit the desirable properties of
"random-like" objects despite being constructed either explicitly or
with limited randomness. Such pseudorandom constructions are important
in the study of error-correcting codes, complexity theory,
combinatorics, cryptography, and high-dimensional geometry. Research
in recent years has addressed some of these challenges and led to
powerful constructions of error-correcting codes, expander graphs,
randomness extractors, Ramsey graphs, compressed sensing matrices,
etc. Despite the seemingly different definitions and motivations for
the study of these objects, much of this progress was based on
insights uncovering intimate connections between them, leading to a
rich theory with a common pool of broadly useful techniques.

This progress notwithstanding, explicit constructions with optimal
parameters typically remain open, and the area is full of exciting new
directions motivated by emerging applications. This project will
involve a comprehensive collection of interconnected research
activities focusing on the theory of error-correcting codes and
pseudorandomness. The directions pursued will include strengthening
the existing connections between various pseudorandom constructs and
discovering new computational applications thereof, and investigating
the pseudorandom properties of codes and related objects that have
important structural characteristics often needed in applications
(such as linearity or sparsity). Topics in coding theory inspired by
complexity theory such as list decoding and locally testable codes,
and codes for poorly understood noise models such as deletion channels
will be studied. Another important goal of the project is to bridge
the gap between worst-case and probabilistic noise models via codes
for channels with natural computational restrictions.

The research will use ideas from computer science in setting new
directions for research in coding theory as well as discovering new
constructions of codes and decoding algorithms, thereby enhancing the
connection between the computer science and information theory
communities. The discovery of new coding schemes has potential direct
applications in communication and storage of data. Many of the
questions to be addressed, therefore, have a natural practical
connection alongside their fundamental theoretical appeal. On the
education front, the project will engage several graduate students and
provide a stimulating research environment for them, and help with the
planned writing of a "goal-oriented" textbook on coding theory.